In situ Functionally Gradient Coatings Using the Combustion Chemical Vapor Deposition Method

Combustion chemical vapor deposition (CCVD(SM)), which was invented by the principal investigator, is a high quality film deposition technique that can inexpensively and quickly apply various materials in a continuous manner. This technology can be used for the production of functionally gradient materials. The CCVD method is low cost, high quality and versatile. It does not require a reaction chamber or furnace, yet the thin films produced are comparable in quality to CVD films, and CCVD technology allows substrates to be passed through a deposition zone for production line or large area coatings. Also, composition changes are easily made. CCVD, Inc., has produced CVD quality films of numerous materials, with an emphasis on YSZ, in the open atmosphere without a furnace or reaction chamber. The functionally gradient material (FGM) system with good abrasion, heat and corrosion resistance has a novel thin film as the exterior coating. Films of the FGM system components will be grown separately using CCVD, and the stoichiometry, morphology, microstructure, and physical properties of the films will be determined as a function of deposition conditions. The FGM coating will then be created by combining the CCVD techniques just perfected and tested for wear resistance.